Grammar-Based Data Specification

The objective of this project is to investigate grammar-based data specifications for testing, analysis, and verification of sequential and concurrent software. Specific research topics include: (1) To address issues, such as the problem of expressing contextual dependencies, in the use of grammer-based data specification for test generation. (2) To explore uses, such as demonstrating consistency between communicating processes, of grammar-based data specifications for analysis and verification. (3) To investigate techniques, such as generating self-checking test cases, of exploiting grammar-based data specifications for test result evaluation.